Oceanographic Instrumentation

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. Support for instrumentation acquisition requests is predicated on share-use by many NSF- funded researchers. This proposal from the University of Delaware requests funding for equipment that will be used to support NSF-funded research cruises aboard the R/V CAPE HENLOPEN, a 120 foot vessel that is owned and operated by the University.